NSF Young Investigator

9357230 Golden This NYI award will support the research of a promising and accomplished young investigator. His research will include theoretical studies of phenomenological particle physics, with special emphasis on electroweak symmetry breaking. ***